RUI: New Dielectric-Loaded Multimode Horn for Satellite Communications - (REU & Women and Minority Supplements)

The primary objective of this RUI research project is to perform in- depth analytical and experimental investigations toward the design, fabrication and evaluation of an antenna system characterized by excellent electrical performance to meet all requirements for satellite communications and other space applications. Another important objective is to provide undergraduate students with significant experience in the analysis techniques of antenna radiation and wave propagation. Students will also acquire a background in fabrication and evaluation of antenna systems for specified purposes. These critical skills can be applied in graduate-level work, future research, engineering development and manufacturing. The proposed antenna is a dielectric-loaded double-flare conical horn. Design of the horn will combine 1) techniques for multimode operation for improved antenna patterns with low cross-polarization and reduced sidelobes and 2) the technique of dielectric loading for gain and directivity enhancement. The antenna will have attractive features in simplicity of design, ease of construction and greater gain to replace the corrugated conical horn currently in use for satellite communication. The antenna's performance will be demonstrated theoretically through rigorous analytical treatment, and will be established experimentally by observation of unique features of high gain, greater directivity, reduced sidelobes, low cross-polarization and wide bandwidth. A variable beamwidth facility required for special applications in satellite communication will also be investigated.